SGER: Big Science at Small Schools Collaboration: Genomics of Chamaecrista fasciculata, a native praire plant with potential for mixed prairie biomass

This project will develop Chamaecrista fasciculata as a model organism to test key questions about the evolution of the Leguminosae (a large family of plants bearing bean pods), several members of which are important agricultural crops or key model organisms for genetic analysis. These questions include 1) whether polyploidy is an ancient feature of this family, or characteristic of the more recently-evolved species only, 2) whether nodules containing symbiotic bacteria in C. fasciculata evolved independently from those common in other legumes, and 3) which genes for flowering time and flower structure are unique to the legumes, conserved within the legumes, and divergent in the more recent legumes. To address these questions, the researchers will sequence all of the active genes in C. fasciculata roots and shoots. These sequences and their resulting interpretation will contribute significantly to research on legumes and to our general understanding of the evolution of this important group. Comparative genetic analysis of Chamaecrista will also shed light on the divergence of the legumes from the last common ancestor shared with Arabidopsis, which is the current model for most genetic analyses.

Although advances in biotechnology now make detailed genetic data available to undergraduates at small schools, the potential opportunities to integrate genomics research and education at smaller schools have yet to be fully realized. This project brings new-generation sequencing technology and the opportunity to work with whole sequences of expressed or active genes to an undergraduate school, to broaden participation within the academy and in the workforce. An educational module based on the proposed research will be developed at Carleton College, informed by interactions with Cornell and the National Center for Genome Resources (NCGR). The module will be accessible to high school teachers through the Cornell Institute for Biology Teachers and to teachers and students at Hispanic-Serving Institutions (HSI), community colleges and Tribal Colleges and Universities (TCUP), through educational programs at NCGR.